Size and Surface Effects in 3He and Other Materials at Low Temperatures

The research proposed is concerned with the study of the properties of materials in the millikelvin to microkelvin regimes. They propose to continue the study of how excitations in 3He interact with surfaces, and in particular will study the interaction of the 3He-Silicon interface. They also plan to extend their measurements on the suppression of the superfluid transiton of 3He to smaller pore sizes and with a different cell design which will permit them to assay both the suppression of the transition temperature as well as the suppression of the superfluid fraction in the pores. Finally, experiments associated with the new microkelvin and top loading facilities are proposed which include the study of proximity effect induced superfluidity in a saturated mixture as well as size and surface scattering effects on internal friction in materials.